RUI: A High Resolution GC/MS/FID for Undergraduate Research in Chemistry

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at Barnard College will acquire a gas chromatograph mass spectrometer with flame ionization detector (GC/MS/FID). This equipment will enhance research in a number of areas including a) studies of contaminant concentrations and metabolite formation in laboratory bacterial and protozoan cultures; b) analysis of components of biologically-produced organic matter; c) analysis of product distributions of intermolecular reactions of dihalocarbenes with strained olefins; and d) kinetic studies of N-heterocyclic carbenes.
Gas chromatograph with mass spectrometric detection (GCMS) is an extremely powerful technique used for the separation and analysis of complex mixtures. This instrument will substantially strengthen scientific research in environmental and organic chemistry at Barnard College.